CAREER: Molecular Photovoltaics: A Lipid-Based Approach

Professor Wei Zhan of Auburn University is supported by the Macromolecular, Supramolecular and Nanochemistry (MSN) Program in the Division of Chemistry to develop a new class of molecular photovoltaic systems using chromophores (porphyrins), electron acceptors (fullerenes) and donors (ferrocenes) assembled within solid-supported thin lipid bilayer films. Organothiol adsorbates on gold will be used to adjust the surface properties of the solid support including polarity, charge, work function, redox properties, and degree of electronic conjugation. Photocurrent generation will be correlated with molecular and bilayer structural changes.

Understanding the mechanisms of charge transfer and the relationship between film structure and photocurrent generation will shed light on important current-limiting processes, and help improve the efficiency of photovoltaic devices. The educational initiative includes classes and demonstrations to broaden awareness of alternative energy generation, and outreach activities for a broad audience in Alabama.